Facilitating Systemic Change

The Education Commission of the States, in collaboration with the Association of State Supervisors of Mathematics, the Council of State Science Supervisors, and the Mathematical Sciences Education Board, will host a three-day learning, networking, and planning event designed to further statewide systemic change efforts in mathemantics, science, and technology education. Key objectives of this event include facilitating cross-group collaboration and communication, and promoting policy and resource alignment within states. Participants will be provided with opportunities to learn about successful models and key elements of systemic change in mathematics, science, and technology education. There will also be time for participants to share information, acquire new skills and tools, discuss alignment of resources, and refine state action plans for implementing systemic change. To ensure that the event responds to the needs of the participants, a design team of participants will develop the event agenda and format. Intended outcomes for the event include improved communication within and across states, increased collaboration within and across states, alignment of initiatives and supporting resources, and continued progress toward statewide systemic change. The organization of this event will also advance federal-state relations by serving as an effective model of large-scale collaboration.